High-Performance Network Connection in Support of Meritorious Research at Wichita State University

The proposal plans to connect WSU to KanREN, to the Great Plains Network (GPN), and then to the Abilene Network in support of research and education in the following areas: experimental therapeutics and cancer biology, molecular modeling of ionic liquids, collaborative design techniques for integrated product development, low temperature astrophysics.